Electroluminescent Fiber Optic Shock Sensor

This is a Phase II SBIR project. The Phase I proof-of-principle experiments demonstrated the feasibility of a new fiber optic sensor designed to measure dynamic high pressure. The sensor design incorporates an electroluminescent emitter combined with a piezoelectric or ferroelectric current source. The Phase II program will seek to optimize the sensor and improve the responsivity and reproducibility. Optimization will begin with a survey of several potential sensor materials. These will include some new materials as well as customized fabrications of materials used in Phase I. Optimization will also include improvements in the optical, electrical, and acoustical coupling between the sensor components. The Phase II evaluation procedure will include detonation and impact generated shock waves as well as the laser generated shock waves predominently used in Phase I. These new shock wave sources will extend the test pressure range up to 1 Mbar (100 GPa).